TEAMS Science Museum Exhibit Collaborative

9627029 Goudy Five small science museums will form "TEAMS (Traveling Exhibits at Museums of Science) Collaborative". The partners include the Montshire Museum of Science, Norwich, VT; The Catawba Science Center, Hickory, NC; Sciencenter, Ithaca, NY; Discovery Center Museum, Rockford, IL; and the Ann Arbor Hands-On Museum, Ann Arbor, MI. Each museum partner will develop a 1500 sq. ft. (140 m2) traveling exhibit that will include ten to fifteen interactive units and supporting graphics and will circulate to all members of the partnership. The exhibition topics are: AirPlay (Montshire Museum of Science, Dirt (Catawba Science Center), You Can Count On It (Sciencenter), Amusement Park Science (Discovery Center Museum), and Eureka Labs: Science from Head to Toe (Ann Arbor Hands-On Museum). Following the circulation among the consortium members, it is anticipated that the exhibits will circulate more broadly via the Association of Science-Technology Centers Traveling Exhibit's Program. In addition to developing these exhibits, the collaboration has an additional goals 1) focusing on the family audiences by working together to enhance the family science learning through the development of resources that can be used by families that are related to exhibition topics, 2) building institutional expertise in exhibit design, family programming, and evaluation; and 3) conducting research on family learning and sharing results with the field. Complementary materials and activities for teachers will also be developed for each exhibit.